SGER: Eddy Correlation Measurements for Analysis of Volcanic CO2 Fluxes

Brantley
EAR-0114858

This SGER proposal is designed to take a unique opportunity to assess the use of eddy correlation (EC), a micrometeorological technique, to measure CO2 fluxes at the Solfatara crater in Campi Flegrei, Italy. The choice of locality was made in order to take advantage of a field season where chamber fluxes will measured concurrently with another methodology by an Italian collaborator, Dr. G. Chiodini. This project has as a goal, to collect data that will convince atmospheric scientists and geologists worldwide of the potential of EC for assessment of volcanic fluxes and surveillance of volcanoes. Funding of the project will allow a student to be involved in the early developmental stages for using EC for volcanic work and will allow her to be involved in an international collaborative setting to study a problem with potential implications for global change and volcanic hazards.